Presidential Young Investigation Award: Combustion and Laser Diagnostic Research

The PI will use his broad laboratory experience to measure the time history of chemical species during a combustion event. Advanced diagnostics (UV Raman, laser induced fluorescence) will yield such information on such major species as H2,N2,O2, and H2O for a variety of steady flames. Similar information on nitric oxides (NO, NO2) will help elucidate nitric oxide formation in turbulent flows. Finally unsteady phenomena will be studied with the help of a unique free electron laser, which possesses high energy (100 mJ per pulse) and repetition rate (1MHz). There is a lot of current interest in resolving the chemical kinetics of flames for very high speed or very unsteady conditions (hypersonic propulsion, pulse combustors, turbulent structors). The number of fuels of interest is also increasing, as economics makes some new compounds more competitive (or some traditional ones less so). All these needs will be well served by the PI's experience. He will make valuable and accurate contributions to the data base.